Renovation of the Searles Science Building Research Facilities

Bowdin College seeks to renovate research facilities within the Searles Science Building. These renovations will modernize and upgrade research laboratories and research support spaces to provide more efficient space utilization and to meet health and safety standards. The primary renovation projects include: removal of asbestos, installation of ventilation systems, provision of new lighting and expanded electrical service, and replacement of bench tops and casework in nine faculty research laboratories and their associated support facilities. In addition, two rooms will be converted -- one for a biology equipment support room and a clean room to support physics device fabrication and house equipment. Their current use as animal holding spaces will be relocated and consolidated into a renovated solarium. The general purpose biology research space will be significantly modified and upgraded to accommodate increasing numbers of independent and honors research students. All of these research spaces, except the third floor solarium, will also be made accessible to the disabled. The renovation addresses a priority capital need of the College that complements other work currently underway in the building, the renovation of other teaching spaces.